GEM: Concept Study for a Modular-Progressive GGCM

This proposal will develop the concept for a GGCM (Global Geospace Circulation Model) control program. Such a GGCM control program would serve to connect and pass data and control between various modules that would comprise the GGCM system. The importance of such a concept study is to help determine the best implementation strategy to undertake in a concerted GGCM development effort which may be mounted in the near future.